Workshop on Scientific Uses of CDSN Data

This grant supports outside-China travel for three U.S. university scientists to attend the Workshop on Scientific Uses of China Digital Seismographic Network Data in Beijing, PRC, in May, 1991. The CDSN has provided an invaluable new data set for a part of the world that has lacked significant seismographic coverage in the past. The data is useful for general studies of the earth's structure and for earthquake hazard research conducted by both U.S. and PRC scientists. The meeting is organized under the US/PRC Earthquake Studies Protocol. China's State Seismological Bureau, the U.S. Geological Survey, and the National Science Foundation are the members of the Protocol. This travel and symposium is important to the successful conduct of U.S. projects of earthquake hazards research planned or underway in the PRC. This research is a component of the National Earthquake Hazard Reduction Program.